SBIR Phase II: Micro Pulse Lidar for Water Vapor Profiling

This Small Business Innovation Research (SBIR) Phase II project addresses the need for a new generation of laser transmitters for differential absorption lidar (DIAL) measurements of water vapor. Phase II will develop a new laser technology for mini-DIAL measurements of water vapor. DIAL transmitter requirements will be achieved using a revolutionary technology that allows diffraction limited performance from diode bars. These ultra bright diode bars enable efficient end pumped, q-switched, low-gain, quasi-three level lasers. Recently, a laser material that operates directly at the 944.1 nanometer water vapor absorption line has become commercially available. Coupling these two technologies will result in an efficient compact DIAL transmitter. This technology will result in a new class of compact, efficient, and low-cost DIAL transmitters for atmospheric water vapor profiling.

Low cost DIAL transmitters are important for future improvements in weather forecasting, global climate models, and understanding of the transmission of communication signals in the atmosphere. In addition, potential commercial applications will be found in the medical and material processing industries.